RNA Processing Meeting, Cold Spring Harbor Lab, May 1988, 89, and 90

The "RNA Processing Meetings" will be held in 1988, 89 and 90 at Cold Spring Harbor, Long Island, during the month of May. The organizers for the upcoming meeting are Drs. Christine Guthrie, U of California (13), Michael Green, Harvard and Alan Lambowitz. RNA processing is a dynamic and growing area of research. The growth in the field is reflected in the attendance at the meeting which has grown from + 30 in 1981 to + 374 in 1987. The rapid pace of development in part has been, the excellent communication and critical evaluation of ideas and data provided by these annual RNA processing meetings.